Collaborative Research: A Software System for Algebraic Geometry Research

Grayson
This is a collaborative project carreied out by Daniel R.
Grayson and Michael E. Stillman. Macaulay 2 is a free computer
algebra system dedicated to the qualitative investigation of
systems of polynomial equations in many variables. The
investigators continue development of Macaulay 2. They upgrade
existing algorithms, install more algorithms, develop and publish
new algorithms, implement new algorithms as they are discovered,
add symbolic-numeric algorithm support, improve the
documentation, and make systemic software changes that help
contributors to write, test, and document code. Areas where new
algorithms can make an impact include the study of numerical
systems, fractions with specified types of denominators, ideal
factorization, systems where the multiplication of the variables
doesn't satisfy the commutative law, geometric optimization, the
analysis of observations of gene expression levels over time, and
bioinformatics.
Macaulay 2 is part of the infrastructure that supports
mathematical research involving systems of polynomial equations
in many variables. A measure of its impact is that at least 70
research papers have cited Macaulay 2, at least seven
mathematicians have contributed code, and books and course
materials are now using it. The experimental results found with
Macaulay 2 are helping in the formulation and development of
tractable conjectures. Now that the software is approaching
maturity, the investigators place more emphasis on recruiting
developers from the research community and on collaborations with
other scientists on both mathematical and interdisciplinary
projects that exploit Macaulay 2's capabilities. They introduce
graduate students and postdocs to the use of computers in
research mathematics through visits and a 5 day workshop in
Urbana. The study of systems of polynomial equations has a long
and distinguished history in pure and applied mathematics, with
recent impact on such fields as cryptography and robotics.
Increasing computer power, combined with further development of
Macaulay 2, enables scientists to expand dramatically its scope.